Symposium on Biological Oxidations at the University of Michigan to be held June 28-29,1996

9514258 Coon The area of biological oxidations, which is of major importance to modern biochemistry, molecular biology, and biophysics, continues to be one of vigorous investigation. This special symposium is being held in honor of Dr.Vincent Massey, a leader in the field of biological oxidations, on his 70th birthday. The symposium will focus on enzyme- catalyzed oxidations and flavins and flavoproteins. The speakers will include 10 from the United States and 6 from foreign countries. All have made significant research contributions in the field of biological oxidation's and many are Dr. Maser's former students and collaborators. Topics that will be discussed include: oxygenases, hydroxylases, oxidases, and dehydrogenases in addition to broader topics such as protein flexibility and biological development of the oxidative proteins. %%% Biological oxidation includes virtually all of the biochemical processes by which energy is derived from foods. A large range of enzymes accomplish the various reactions that are involved. This meeting will bring together investigators who are working on the broad range of enzymes and related topics that are linked by a common theme, i.e., biological oxidation. It is expected that information exchange among these investigators will lead to new insight into this field. ***